Preservation of Human Skeletal remains from SunWatch National Historic Landmark

With National Science Foundation support, an accessible burial chamber for Native American skeletal materials will be constructed at the Sunwatch site in Ohio. Archaeological excavation at this site yielded a series of human skeletal remains consisting of 175 individuals which were recovered from a number of areas within the circular stockaded village. The collection is important because it appears to date from a 10-20 year period and thus reflects an extremely limited (in an archaeological sense) slice of time. Therefore, it is of great interest to biological anthropologists. Given religious sensitivity of many Native American groups, however, it has been proposed that these (as well as other) remains be reburied. The Dayton Museum of Natural History which curates the skeletons has worked with a Native American group and proposed an ingenious solution. A simple, locked underground crypt will be constructed at the Sunwatch site itself near a visitors center. The skeletal remains will thus be interred in what is viewed as their proper context. They will, however, be available for study by qualified experts including both scientists and Native American religious leaders. This project is important for two reasons. It will make access to scientifically important materials available on a continuing basis. It will also provide an example of how skeletal materials may be treated to accord with both scientific and religious concerns.